Applications of Liquid Chromatography to Analyses of Marine Plants

High performance liquid chromatography (HPLC) is a modern instrumental technique used to isolate and analyze components in a mixture. Through this project, Eckerd College chemistry students will apply the theory of liquid chromatography to experimentation using HPLC instrumentation. The equipment will be used by both chemistry and marine science students for the isolation, identification, and quantitation of pigments in marine plants. Students are expected to carry out a complete investigation including research design, sampling, analysis, and interpretation of results. Their studies include determining relative proportions of pigments in various species of marine plants, or in a single species collected at different sites.